SGER: Framework for a General Multimedia Workbench

Abstract

IIS - 0836181
Framework for a General Multimedia Workbench
Byrd, Donald, Indiana University

This SGER project will pursue the development of a general framework for exploring and editing time-dependent multimedia using a variety of coordinated visualizations and sonifications. It enhances contemporary methods of content-based searching and retrieval of musical information from online databases and stored in a variety of formats ranging from encoded score files to digital audio. The type of system proposed would for the first time make it possible for scholars to compare relationships among musical works and among versions of the same work in a new flexible ways. The underlying general problem addressed in the project of a framework supporting combinations of visualizations and sonifications in a modular framework allows the results to apply to temporal phenomena generally across disciplinary domains.